Creating a 47-Year Public Record of Sea-Ice Draft in the Arctic Ocean

Measurements of the sea-ice penetration depth below the sea surface (ice draft) have been made by U.S. submarines operating in the Arctic Ocean since 1958. These Arctic records will be obtained from the U.S. Navy, transcribed and analyzed, and placed in the public record. The data will be used to examine regional and seasonal changes in the ice thickness over the Arctic basin. Expectations are that the ice pack has become thinner over the last several decades. Long-term trends will be examined in collaboration with other scientists with more recent data and with data from other countries.